Extremal Problems Concerning Forbidden Subgraphs

The PI will study forbidden subgraph problems, namely the Turan and
saturation functions, as well as positional games. It is hoped that a
better understanding of some of the key topics, such as the Turan density,
exactness results, stability, jumps, and non-principality phenomena will
be achieved. The PI will work on enlarging the list of forbidden
hypergraphs for which the complete solution has been obtained. Also, the
more general setting of the above problems, wherein the restriction of
containing no forbidden subgraph is replaced by an arbitrary property
expressible in first order logic, will be considered. Another direction of
research is to study positional games, such as Breaker-Maker, coloring,
and symmetry games. In particular, the PI will continue the previous
investigation of the first order descriptive complexity of combinatorial
structures, in which the Ehrenfeucht game is an indispensable tool.

The proposed topics of extremal combinatorics comprise many important and
difficult problems, some of which have withstood decades of attempts. This
area is rich in connections to other fields, such as the probabilistic
method, linear algebra, codes, design theory, and finite field
constructions. Also, the investigator's work on positional games and first
order properties, which play an important role in combinatorics, computer
science, and logic, may potentially lead to improvements in redundancy and
representation algorithms for combinatorial data.